ABR: Genetic Technology Development and International Security Efforts: Renewal

Genomics has become increasingly important for law and policing, as evidenced by the proliferation of national criminal DNA databases throughout the world. New national criminal DNA databases, once limited to high-income countries, are becoming widespread in middle-income countries and they are also beginning to be established in low-income countries. But DNA databases require infrastructural resources and expertise to implement and maintain. How are places that are marked by capacity challenges and conditions of scarcity establishing and running DNA databases under these conditions, and how might their strategies inform the global future of this phenomenon? How does DNA become transformed into something that is reliable and useful in national legal contexts and in international security efforts? This research project will address these questions by investigating the intersection between genomics and law, related infrastructural investments, and the networks of people who must work together to transform genetic data into legally legible evidence. Further, this project supports the methods and data analysis training of two graduate students.

This research is supported as an accomplishment-based renewal of a highly successful project exploring how the use of genetic technologies in criminal law might change understandings of science and reliable evidence. This research extends that completed through a previous grant by further investigating emerging global criminal forensic genetics with interconnected local, national, and transnational influences and implications. The research will take place in a middle-income context that has been implementing and expanding a 2015 law that creates a criminal DNA database for which the police force has primary responsibility. The project will use ethnographic methodologies to consider how a broad range of stakeholders understand science and its application and are brought together through their roles in enacting investments in forensic genetics. The project will include police, forensic laboratories, courtrooms, and NGOs and private companies that contribute to forensic genetics. In this research context, investment in genomics for law enforcement is new and actively expanding throughout the research period. Those current investments raise important questions about the global scope and scale, and the local specificity and variation, of relationships between genomics and law. This research therefore offers an actively emerging view into how DNA comes to matter in new ways as it moves out of research laboratories and into a broader public sphere.